Mesa Lab Refurbishment Project

The purpose of this award is to support the Mesa Lab Refurbishment Project. Funds will be used to upgrade, renovate, and bring into code compliance, the NCAR Mesa Laboratory in Boulder, Colorado. These upgrades are well overdue and is greatly needed to maintain its rare architectural structure.